Conference: 2026 Calcium Signaling Gordon Research Seminar

The 2026 Calcium Signaling Gordon Research Seminar (GRS) is a seminar run by and for trainees dedicated to graduate student and postdoctoral attendees within the calcium signaling field. It will be held on June 6-7 2026, at the Jordan Hotel at Sunday River, Newry (ME), immediately transitioning into the associated Calcium Signaling Gordon Research Conference (GRC), held June 7-12 at the same venue. The meeting will provide an invaluable opportunity for graduate students and postdoctoral researchers in the calcium signaling field to share their science and network with peers. The study of calcium signaling is crucial to advancement of the broader scientific community as its function is ubiquitous across many disciplines that directly impact national health, from cardiac function to neuroscience. The 2026 GRS and GRC will be the first major calcium signaling meetings held in the United States since 2022 and the first calcium signaling trainee focused conference in the US since 2015. As the only calcium signaling meeting of its caliber run by and for trainees in the US, the GRS is an invaluable contributor to the continuation of this ever-evolving discipline.

The overarching goal of the 2026 GRS is to provide a forum for discussing cutting edge advances in calcium signaling research alongside a participation-driven space for mentorship and collaboration. This prompts the future leaders of the calcium signaling field to develop high-impact research projects and build a lasting peer network that will influence the future discoveries of the field. 30 to 50 trainee calcium researchers are expected to attend the GRS. All attendees will have the opportunity to present their work in a poster format, and fourteen speakers are chosen from submitted abstracts for oral symposia. The proposed GRS program includes a keynote speaker, Dr. Janine Santos (NIEH, US), who will talk about mitochondrial biology and its interface with calcium signaling. A mentorship panel will be conducted by Dr. Ivana Kuo (Loyola University, US, and 2026 Calcium Signaling GRC chair) and Dr. Milton Greenberg (CEO at Vivreon Biosciences). Dr. Kuo and Dr. Greenberg will share their experience and career trajectories inside and outside academia, followed by a Q/A session driven by the trainees' career interests.